Decade of the Brain Publication

The Subcommittee on Brain and Behavioral Sciences will publish their activities and efforts to identify and coordinate research and resource needs concerning neurological and behavioral sciences during the "Decade of the Brain".